Crystal Chemistry

A program in experimental and theoretical crystal chemistry is described. It is proposed to measure the electron density in simple crystals using a new, but proven, electron diffraction method that is considerably more accurate than the traditional x-ray method. This will provide (in many instances for the first time) invaluable data for interpreting bonding in crystals and which can serve as benchmarks for evaluating theoretical calculations. Synthetic work is aimed at the preparation and structural characterization of new oxides and nitrides of importance to developing the theoretical crystal chemistry of these materials. Particular attention will be paid to new synthetic routes to transition metal nitrides; to structures of importance in elucidating the role of hydrogen in oxide chemistry; and to compounds that will shed light on the crystal chemistry of superconducting oxides with high critical temperatures.